PER: Engineering Research Center for Subsurface Sensing and Imaging Systems

Abstract
EEC-0121931
Silevitch

This project will support a pilot program for a "University without Walls," including Northeastern University's ERC for Subsurface Sensing and Imaging Systems (CenSSIS), Confocal-microscopy Laboratory at Massachusetts General Hospital, and the Biomedical Research Partnership (BRP) Laboratory at the Massachusetts General Hospital. Collaboration between biomedical researchers and engineers is essential in creating breakthroughs in sensing an imaging that will be necessary to solve complex biological processes. A three-year program is proposed involving graduate students. Each student will have an academic advisor in the home institution, responsible for directing the students' academic activity, and two technical advisors, one in engineering an done in biology or medicine. The research will focus on three areas: hyperspectral imaging, confocal microscopy and quadrature tomographic microscope.